Gravitational Wave Data Analysis For LIGO

This project will carry out LIGO Scientific Collaboration (LSC) research
activities related to the analysis of data from the NSF-funded Laser
Interferometer Gravitational Wave Observatory (LIGO). This includes
the development and testing of algorithms and data analysis techniques
to search for gravitational waves from known astrophysical
sources. Since these will produce extremely weak signals, the data
analysis problem is to find these signals in a noisy data stream,
where the statistical properties of the noise are not straightforward
to characterize. The UWM group is developing and testing data
analysis strategies and algorithms which are not adversely affected by
instrumental anomalies. This work includes the writing of both
prototype and production codes, which are then tested and compared
with other techniques. The best methods are then migrated into the
LIGO Data Analysis System where they can be run on very large data
sets.

This work is crucial to the success of LIGO, which is an NSF-funded
project to detect gravitational waves of astrophysical origin. Such
waves are emitted by astrophysical sources such as coalescing pairs of
binary neutron stars, supernovae, and pulsars, but are very weak and
have never been directly observed. This is why new and specialized
types of data analysis methods are needed. Direct observation would
confirm a fundamental prediction of physics -- the existence of
gravitational waves -- and provide a unique tool for observing exotic
astrophysical phenomena. The two LIGO observatories are located in
Hanford, WA and Livingston, LA, and have been under construction since
1995; they will be completed and operating sometime during 2001.